Cooperative NSF/CRCD and ASEE/ERM Dissemination Services

9526429 Genalo This award provides support for three years, to Dr. Lawrence j. Genalo of Iowa State University to serve as coordinator of a joint American Society for Engineering Education (ASEE)/Educational Research and Methods (ERM) Division and NSF project to provide a highly visible outlet for dissemination of NSF/Combined Research-Curriculum Development Program results. Poster sessions sponsored by ERM will be held at the ASEE Annual Meetings in 1995, 1996, and 1997. At these sessions CRCD grantees will present the results of the projects in poster session format as well as publishing papers on their work in the ASEE proceedings. ***